Lasers Across the Chemistry Curriculum

The chemical applications of lasers is being introduced throughout the chemistry curriculum. Laser experiments using modern chemical instrumentation are replacing traditional wet chemical procedures in the first-year General/Analytical Chemistry sequence. Chiral product characterization using laser polarimetry following microscale synthesis is being introduced in organic and inorganic Chemistry laboratories. In the analytical and physical laboratories lasers are used to probe excited states, to study chemical events taking place on the nanosecond timescale, and to investigate nonlinear spectroscopy via two-laser multiphoton excitation, Raman scattering, and harmonic generation experiments.